Mathematical Sciences: Spectral Invariants in Topology and Geometry

9403360 Gilkey The research covers a number of topics in the overlapping areas of geometry, analysis and topology. These mainly involve questions of spectral geometry and invariants, in particular the eta-invariant and asymptotics related to heat equation techniques for manifolds with boundary. The research has potential applications to other areas of mathematics, particularly topology, as well as to operator theory in mathematical physics. ***